CAREER: Compiler-Assisted Data Adaptation

Data management has become a core function of computing, strongly
influencing not only performance but also energy consumption, program
security, fault tolerance, and other program properties. While many
programs use a large amount of data, they do not access all data at
all times. Hence, data adaptation can improve cache efficiency by
identifying and compacting precisely those data required at a given
point of computation. Such fine-grained and dynamic data management
may significantly alleviate the bottleneck on communication and
strengthen the control of data.

This research studies fine-grained data adaptation through a
compiler-based approach. It develops three compiler-assisted
techniques. First, program monitoring analyzes selected data; then,
locality analysis identifies their group locality; and finally, data
transformation changes their layout while maintaining program
correctness using run-time data maps. The new system improves cache
optimization for data-intensive applications on conventional machines
and memory management for general-purpose programs on embedded
devices. In parallel to research, the investigator develops
data-analysis tools to support teaching of memory issues in computer
organization, compiler, and programming courses. The investigator
also develops an advanced course that focuses on memory optimization
techniques at all system levels.